Conference: 2023 Gordon Research Conference and Seminar on Nuclear Chemistry

This award provides support for students to participate in the 2023 Gordon Research Conference (GRC) on Nuclear Chemistry that will be held at Colby Sawyer College in New London, New Hampshire, June 11 - 15, 2023, with an associated Gordon Research Seminar on Nuclear Chemistry June 10 – 11, 2023 at the same location. These meetings bring together scientists from around the world to focus on research at the forefront of nuclear chemistry. The conference is organized in a way to promote significant discussion and time for collaboration throughout the week.

This award will provide partial support for a limited number of junior researchers to attend the 2023 GRC. The support for the participants will be selected by the chairs based on submitted abstracts of their research. This support will allow participants to attend these meetings who may otherwise not be able to attend. Participation of young researchers in these meetings plays a large role in the development of the future leaders of nuclear science.